Developing and Absolutely-Dated Holocene Tree-Ring Chronology from Subfossil Huon Pine in Tasmania for Paleoclimatic and Isotopic Studies

Abstract ATM-9627318 Cook, Edward D'Arrigo, Rosanne Columbia University Title: Developing an Absolutely-Dated Holocene Tree-Ring Chronology from Subfossil Huon Pine in Tasmania for Paleoclimatic and Isotopic Studies This award supports research within the Earth System History Program (USGCRP) to develop a Holocene-length, absolutely-dated annual tree-ring chronology from Huon pine wood in Tasmania. This chronology will be used to provide dendrochronologically-dated wood for developing an independent radiocarbon calibration for the Southern Hemisphere. This will be used to compare for comparing with and extend the calibration curve developed from Northern Hemisphere wood alone. The wood will also be used to characterize the inter-hemispheric offset in atmospheric radiocarbon throughout the Holocene. In so doing, periods of unusual thermohaline circulation and ocean ventilation may identified. This project will also provide dated wood for stable isotope studies and develop multi-millennial annual tree-ring chronologies for dendroclimatic studies. Thus, these data will provide high-resolution, precisely- dated estimates of climate variability for most of the Holocene in this sector of the Southern Hemisphere. This will be the longest tree-ring chronology in the world and will provide a wealth of information about high-resolution climate and radiocarbon variations back to the late-glacial period.